ITR Collaborative Research: Complexity-Theoretic Applications of Fourier Analysis

Fourier analysis appears in many of the celebrated cornerstones of
theoretical computer science. It plays essential roles in expander
graph construction and derandomization, complexity lower bounds,
probabilistically checkable proof systems, quantum computing, lower
bounds for distributed computation, and traditional applications to
computer algebra. The majority of these applications involve the
familiar framework of commutative Fourier analysis. The proposed
project brings together a multidisciplinary research team to apply the
beautiful tools of non-Abelian (that is, noncommutative) Fourier
analysis to investigate open questions in two areas where non-Abelian
groups have recently become very important: lower bounds for parallel
computation and quantum algorithms. The program also further develops
efficient algorithms for the discrete Fourier transform over finite
non-Abelian groups.

This project focuses on developing tools for separating the complexity
classes ACC^0 and NC^1, in order to demonstrate that there are natural
(polynomial-time computable) problems which simply cannot be
parallelized in the sense of ACC^0. The project applies a new family
of tools for separating such circuit classes, using non-Abelian
Fourier analysis to bound their computational power. These tools apply
also to the problem of solving equations over finite groups, and the
development of new probabilistically checkable proof systems based on
non-Abelian groups. In addition, the project applies non-Abelian
Fourier analysis to develop improved lower bounds on the standard
Quantum Fourier Transform approach to Graph Isomorphism and study
quantum Monte Carlo algorithms. Finally, the project focuses on
adaptations of Bratelli diagrams and quivers to develop classical and
quantum algorithms for the non-Abelian Fourier transform itself.